A Statistics Program at the National Center for Atmospheric Research

ABSTRACT
PI: Douglas Nychka
proposal: 0355474

The Geophysical Statistics Project (GSP) at the National Center for
Atmospheric Research (NCAR) provides a unique opportunity to address
important research problems at the interface between the geosciences and
statistics. The statistical research includes contributions to the
analysis of nonstationary spatial and spatio-temporal data, the design and
analysis of computer experiments, filtering, the statistics of extremes,
data mining, and statistical computing. These methods are adapted to large
data sets and publicly available software is available to implement new
methods for spatial data and extremes. The intellectual contributions to
applications in the geosciences is equally broad and includes the
introduction of stochastic modeling for sub-grid scale processes,
estimating the climatology for extreme events, the construction of
spatially coherent weather generators, and statistical improvements to
methods of data assimilation.

A grand scientific challenge for this century is to understand the complex
interrelationships among the atmosphere, ocean, land processes, biosphere
and human activities that define the Earth System. Coupled with this
effort is the need to predict changes to our environment and to translate
such changes into more immediate economic and societal impacts. There is
a corresponding challenge for statistical science to tackle the large and
complex data sets that are now the norm in many areas of science and
engineering and to leverage the rich structure and prior knowledge
afforded by traditional numerical models. Through the training of young
researchers, a vigorous visitor program and participation within several
of the NCAR strategic initiatives, this work reaches a wide community
of statisticians and researchers in the geosciences. In this context, some
specific problems are the design and analysis of large computer
experiments that simulate the Earth's climate, extrapolating historical
meteorological data sets to locations where they are not observed,
improving the algorithms used to make numerical weather predictions, and
identifying models that include random processes to represent complicated
geophysical phenomenon. One common element throughout this research is
quantifying the uncertainty in a derived method or result. Uncertainty
estimates are often difficult to obtain without a statistical treatment
but are particularly important when the analysis is subsequently used for
decision making or to assess risks.